Design Methodology for Signal Processing

Lee This research deals with design methodology for heterogeneous implementations of signal processing systems. Some signal processing algorithms consist of highly repetitive, predictable computations on streams of samples with hard real- time constraints, and are amenable to synchronous dataflow representations and static (compile-time) scheduling. Other algorithms involve some decision making or run-time control flow, and can be accommodated efficiently by a broader dataflow model that includes run-time flow control. When such algorithms are combined into complete systems, more dynamics must be supported, and discrete-event principles, or real-time operating systems must be included. This research is looking at ways to combine diverse semantics, and is pursuing co-simulation techniques and understanding of the interaction between what formal methods are available within each model of computation. A design framework (called Ptolemy) that supports all these models, individually or in combination, is being developed as a testbed.